ESG1992 Symposium on the Effects of Surface Geology on Seismic Motion

This workshop is part of an ongoing and worldwide effort to better understand the effects of surface geology on the waves propagating from an earthquake rupture. Specifically, this is being done through experiments which consist of two phases: weak motion and strong motion data collection and model testing through "blind" prediction and analysis (that is, the predictions are made in advance of the experiment being performed). The United States and Japan have separately implemented experiments; at Turkey Flat, CA and in the Ashigara Valley, Kanagawa, Japan. The objective of the ESG1992 Symposium is to bring together researchers from around the world who have made blind predictions using the Turkey Flat and Ashigara Valley data, in order to present individual and summary results and analyses to: 1) develop insights with respect to the effects of near-surface geology on properties of earthquake motions, 2) to evaluate models and modeling approaches and 3) to identify future directions for research. This is the first of two symposia on site response that are planned. The second will be held in the United States following the anticipated strong motion earthquake at Parkfield, CA (an official prediction made by the U.S. Geological Survey). This action is to provide travel support for four U.S. researchers to attend this symposium.